NSF INCLUDES DDLP: Advanced Manufacturing Partnerships (AMP): Broadening Participation in New Hampshire's Workforce

The University of New Hampshire (UNH) NSF INCLUDES Design and Development Launch Pilot project is a collaborative effort with the Community College System of New Hampshire, Advanced Manufacturing (AM) businesses, NH Economic Development, and the University of New Hampshire to address workforce development in the Advanced Manufacturing sector in the state. The Advanced Manufacturing Program (AMP) uses a framework built on the Collective Impact collaboration model that enables AMP partners to innovate, plan, and implement strategies that significantly increase NH's community colleges (CC) as a source for future workers and leaders in AM.

Specifically, this proposal addresses the pressing need for increasing numbers of AM workers through strategies designed to increase the retention of low socioeconomic status (LSES) students in CC STEM degree programs. AMP coordinates four key implementation strategies: 1) Co-requisite remediation within mathematics and quantitative reasoning; 2) Guided Pathways mentorship with "high touch" advising and student guidance resources that combines clearly defined academic pathways leading to 4-year college transfer and job placement; 3) paid work-based learning (WBL) experiences in industry and academic research; and 4) mentor inclusiveness training to prepare the workplace and academic settings to receive LSES students into a supportive climate. Successfully coordinating these four components through the process of Collective Impact collaboration will lead to a flexible and integrated AM workforce pipeline that serves CC AM students, AM industry partners, and the state as a whole. Findings will be disseminated to academic, business, and government stakeholders in NH, the region, and nationally to inform and improve broadening participation initiatives.